Nuclear Magnetic Resonance Spectroscopy in Undergraduate Chemistry Instruction

A nuclear magnetic resonance spectrometer has been acquired by the Chemistry Department of St. Norbert College for use in undergraduate instruction. The instrument is being used extensively in the following courses: organic, advanced organic, physical, instrumentation, biochemistry, and independent research. Experiments such as determining the pKa values of organic bases, measuring the percent enolization of acetylacetone, and the determination of coupling constants to distinguish between cis, trans, and geminal vinylic isomers are among the activities carried out. Students are provided with the hands-on experience expected by employers and graduate schools.